Introduction of High Performance Liquid Chromatography into the Chemistry Curriculum.

This project will introduce the technique of High Performance Liquid Chromatography (HPLC) into the chemistry curriculum at the sophomore level as a part of two courses in analytical chemistry. Three identical HPLC's configured for isocratic operation and UV detection will be used. These uses complement existing gas chromatographic, infrared, UV-VIS, and electrochemical techniques already in these courses for chemistry and other science majors. Exposure to this valuable technique will serve as the basis for expanded HPLC usage in junior-senior level courses such as biochemistry, physical chemistry, and advanced inorganic laboratories. The grantee will match the NSF award from non-Federal sources.